Tests of a Real-Time Model of Pavlovian Fear Conditioning

Backward conditioning has always been controversial, and even in the most convincing demonstrations has been weak. Still, it is of great theoretical importance because its existence argues against the widely accepted view that neutral events must predict the occurrence of non-neutral events in order to acquire conditioned strength. Dr. Ayres will carry out experiments using rats in order to study backward excitatory fear conditioning, in which a once-neutral stimulus (CS) comes to arouse fear because it has in the past closely followed (rather than preceded) a non-neutral stimulus (US). In Dr. Ayres' work, the US is a brief electric shock, and the CS is a tone, click, or light. Dr. Ayres will manipulate such variables as CS and US duration, the length of the gap between US termination and CS onset, etc. The aim is to discover parameters that will make the backward- conditioning effect as robust as possible and thus to facilitate future experimental and theoretical analysis. The discovery of a strong effect could, moreover, implicate backward conditioning as a hitherto-neglected source of human anxiety disorders. Dr. Ayres' research is unique in focusing mainly on one-trial conditioning procedures. Human anxiety disorders (and learning by animals in the wild) often appear to be based on a single experience, yet one-trial conditioning has received relatively little experimental attention. Such procedures also have important methodological properties. Finally, the research is also unique in that the bulk of the studies are guided by the computer-simulated predictions of a formal model of conditioning. The studies thus provide strong tests of that model.